CAREER: Dynamic Allocation for Real-Time Systems and Educational Development

The ever-expanding safety-critical roles of cyber-physical systems in the modern societies demand additional resources, specifically memory, without which they will be unable to safely meet their purpose. Memory is one resource where demands and expectations are already outpacing availability in today's applications such as processing video to detect pedestrians, coordinating space flight with data from myriad sensors, or using AI models in decision making. This project addresses the fundamental challenge of how computational systems may share the increasingly limited resource of main memory while maintaining the strict timing requirements necessary to ensure their safety-critical operations. As a result of this project the scope of time-sensitive safety-critical systems will be expanded to include memory constrained systems, directly progressing the science of safety-critical systems, enabling novel research and development in cyber-physical system applications including health care, aerospace, and national defense while lowering the cost of those systems to the benefit of overall national prosperity. Through collaboration with local high schools, the project will expose students to safety-critical problems of autonomous vehicle racing.

The central challenge to meeting the scientific goals of the project stems from the complexity and scalability of dynamic memory management (DMM) analysis. While existing DMM techniques address the problems of approximate internal fragmentation and bounded execution times, the problem of accurate worst-case fragmentation has not - a necessary component of scheduling algorithms that obey both memory and timing constraints. This project provides the first allocation aware scheduling algorithms through a novel scalable abstract interpretation of DMM analysis, creating bounds on the worst-case memory allocation of tasks. Upon completion, it will enable real-time systems to utilize virtual memory upon multi-core systems. Further, it will significantly impact cyber-physical real-time systems research, resulting in more efficient, reliable, and capable safety-critical systems. It will establish the foundations of allocation scheduling, creating new branches for research into novel scheduling algorithms, DMM techniques focused on reducing external fragmentation, and open the pathway to memory intensive real-time applications.